CAREER: Long-Term Changes in Synaptic Function Induced by Selective Suppression of Activity in Single Neurons

Lay abstract

CAREER: Long-term changes in synaptic function induced by selective
suppression of activity in single neurons

The adaptation of the brain to environmental changes is achieved in part
through modifications in the strength of synapses, which are specialized
connections between neurons. The precise rules governing synapse
formation, maturation and subsequent modification in the central nervous
system are not fully understood. Using electrophysiology, fluorescence
microscopy and molecular biological tools, Dr. Murthy will investigate
long-term modification of identified synapses in a simple neural network
in vitro. The overall research objectives of the proposal are (i) to
determine the consequences of selective, long-term reduction of activity
in a single neuron within an active network, and (ii) to understand the
locus and mechanisms in synaptic modification resulting from this
manipulation.

Two general classes of results might be anticipated - homeostatic
modifications that allow neuron-wide increase in synaptic strength that
will restore the overall activity of the 'quiet' cell to normal levels,
and competitive modifications that reduce or eliminate synaptic input and
output of the 'quiet' cell. This experimental system will offer
unparalleled access to detailed cell biological investigations of synaptic
modification - from the level of gene expression to physiological analysis
at single synapse resolution. The investigator will also integrate
education with his research program by developing up-to-date instructional
material for an advanced course in neuronal cell biology. Since optical
microscopy has become an indispensable tool in cellular-level research,
Dr. Murthy will organize short departmental workshops on advanced imaging
techniques. In addition to these instructional elements, the investigator
will also mentor undergraduate and graduate students, including those from
underrepresented groups.